Fluidization and Electropolymerization Parameters in Film Formation in Particulate Substrates

this research is aimed at investigating the mechanisms in electroinitiated polymerization. In this process, polymerization occurs in a cell reactor which contains separate cathode and anode compartments. Potential applications are in electro-optic display devices, as electrode materials in rechargeable batteries, and as carbon-particle reinforced polymer composites. The project addresses a fundamental study of the controlling parameters in fluidized bed electroinitiated polymerization at interfaces.